1999 Dagstuhl Seminar on Deduction; March 1-5, l999; Wadern, Germany

An International seminar on deduction - organized by Prof. Ulrich Furbach (University of Koblenz, Germany), Prof. Harald Ganzinger (MPI Saarbrucken, Germany), Prof. Ryuzo Hasegawa (Kyushu University, Japan), and Prof. Deepak Kapur (SUNY at Albany) - will be help March 1-5, l999 at the Dagstuhl Seminar Center in Wadern, Germany. About 70 automated deduction researchers from around the world have been invited to participate. This award supports the travel of American invitees to attend the seminar.